Research Experience For Undergraduates (REU): Research Investigations in Particulate Systems Engineering

Research in Particulate Systems Engineering is crucial to advances in combustion, atmospheric, and environmental sciences, nuclear winter studies, nuclear reactor safety, and materials manufacturing. The purpose of this project is to provide research experiences for 12 undergraduate students in this area at the University of Missouri-Columbia (UMC). At least half of the students will be selected from institutions other than UMC, with several recruited from Stephens College (a woman's college), Lincoln University (HBCU), and other undergraduate schools in the state. Each student will undertake a specific research project, and a faculty advisor will work with the student to develop his/her research skills. The purpose is to infuse bright undergraduate students with enthusiasm towards research careers, including graduate level education. Some of the research projects include: (1) the use of mathematical and physical modeling to predict the behavior of a given particulate system, (2) explore the modeling of an aerosol reactor, including particulate characterization and production of superconducting materials, and (3) the use of neutron activation analysis in particulate studies.